Research Initiation Award: Micromechanics of Composite Materials and Structures

This RESEARCH INITIATION AWARD is to support research in the micromechanics of composite materials and structures. Specific topics to be studied are residual stress induced cracking in composites and constrained ductile fracture in multilayered ceramics. Cavitation stability studies will also be performed.